Basic Astrophysics and Computing Research in Support of LIGO Gravitational Wave Detection

Prof. Prince's group will develop improved algorithms for the detection of gravitational wave signals with LIGO and implement these algorithms in software that runs efficiently on parallel computers. Specifically, they will implement improved algorithms for semi-coherent detection of periodic sources of gravitational waves and test these algorithms using data on x-ray pulsars and data from prototype interferometers. They will also develop more efficient algorithms for generation of binary inspiral chirp templates using the stationary phase approximation.
Algorithms for the detection of periodic sources and binary inspiral are central to achieving the science goals of LIGO. The next required step for LIGO is to develop efficient algorithms that run on multi-processor parallel computers and that are robust when applied to real data.